Developing an Integrated Assessment and Support System for Elementary Teacher Education

This is a multi-faceted project for which the project team is developing, implementing and evaluating a prototype for an integrated assessment system in elementary teacher education in mathematics. The system is: (a) supporting the development of student teachers in using mathematical content and language/reading knowledge for teaching mathematics; (b) supporting the development of the school faculty and university faculty who work with them, in analyzing teaching practice and providing feedback; (c) facilitating cooperation and common understanding across these different communities of practice; and (d) warranting the quality of the teacher education program and the decisions made about readiness-to-teach mathematics. The project is focusing on three settings for professional learning: the subject matter methods course and related field instruction; the student teaching semester and related seminar; and, for assessment purposes, the initial induction year. The project also is documenting both the development of the student teachers in the practice of teaching mathematics to students from diverse backgrounds and of cooperating teachers and field instructors as they learn to analyze the practice of the student teachers and provide feedback.

INTELLECTUAL MERIT: The intellectual merit of this project lies in the development, implementation, research and evaluation of the assessment system. The research questions being examined are:

1. To what extent does the available evidence support the validity of the assessment system for supporting and monitoring learning, for warranting decisions about readiness to teach, and for evaluating the quality of the teacher education program?

2. To what extent does the assessment system differentiate among teachers with different levels of experience?

3. To what extent does the available evidence demonstrate student teachers' capability of working in different contexts and with students from diverse academic, socioeconomic, language and racial and ethnic backgrounds?

4. What is the developmental trajectory of Cooperating Teachers and Field Instructors participating in the curriculum with respect to (a) their mathematical knowledge for teaching and (b) their ability to analyze, evaluate and give useful feedback on teaching practice -- especially as it relates to the use of mathematical content knowledge and knowledge of reading/language for teaching mathematics?

BROADER IMPACTS: The prototype system is being documented and disseminated such that other education programs can either adopt it as is, adapt it to their local context or develop a system of their own following its developmental principles. Implementation of the system is designed to facilitate collaborative learning between school and university communities and to allow educational institutions and agencies to document the validity of local decisions about beginning teachers' readiness to teach. The preparation materials being developed -- which include a set of analyzed records of teaching practice along with guidelines for using these materials -- are being made available electronically and via workshops, presentations and peer-reviewed publications so that teacher education programs and agencies can use them for professional and program enhancement and development.